UV Microbeam Analysis of Microtubule Dynamics

Before cells divide, their genetic information, contained in structures called chromosomes, is duplicated precisely. During cell division, the duplicated chromosomes are distributed into the two daughter cells so that each daughter subsequently contains exactly the same kind and number of chromosomes. The cellular organelles responsible for carrying out this crucial process are collectively called the mitotic spindle. The spindle is composed primarily of a complex network of microtubule cables that attach to individual chromosomes at one end, and become anchored at their other end to sites called the cell poles. During the course of cell division these cables somehow pull the chromosomes to their respective poles, by a mechanism whose details are only poorly understood. In this novel and well written proposal, the principal investigator will design, construct, and calibrate an ultraviolet microbeam apparatus. This device is capable of irradiating and thereby cutting a single microtubule fiber in a living cell. The experiments described will allow the investigator to distinguish between several current models of microtubule function during chromosome movement. This is the case because the various models made different predictions with respect to the effect of gap production on the stability and dynamics of the fiber, the movement of chromosomes, and the nature of irradiation-induced gap repair.